Research Experiences in Geometry and Topology

The REU at Tulane in the summer of 2002 will involve 6 students and 2 .faculty members (Kalka and Yang) in research in differential geometry. The students will be broken up into 2 groups of 3 students, each group working with one of the faculty members, according to level of preparation and interests. Students will meet regularly with the faculty member and more often with each other. There will be a weekly seminar where each group will give a short presentation on their work. The students will be housed on campus, with housing supplied by Tulane and will each receive a stipend of $3000.